NSF INCLUDES DDLP:Diversifying Access to Urban Universities for Students in STEM Fields

Many urban universities offer precollege STEM programs aimed at broadening participation in STEM. These programs are designed to increase students' scientific content knowledge and skills, promote STEM engagement, increase self-efficacy, and prepare underserved and underrepresented minority high school students for success in undergraduate programs. However, even after demonstrating significant knowledge gains and success in these programs, students are often unable to authenticate their knowledge gains to receive favorable consideration on college applications. In fact, there is currently no systematic credentialing mechanism to assess and validate the scientific rigor of and competency gains within STEM precollege programs for college admissions purposes. This NSF INCLUDES Design and Development Launch Pilot seeks to address this gap by developing and testing credentialing and badging processes for four STEM precollege programs. Working with College Admissions Officers and project partners, the University of Pittsburgh endeavors to employ a collaborative impact approach to build and document the collaborative infrastructure needed to support STEM precollege program authentication processes. This will seed the development of a networked improvement community that supports all aspects of the work from participant support to the collaborative impact to the greater network of urban education university ecosystems involved in the pilot.

Over a two-year period, this pilot will examine a mechanism to strengthen the STEM pathway for disadvantaged and underrepresented minority students to enter postsecondary STEM programs and eventually STEM careers. Building on two social innovation theories, the technical approach will focus on four specific aims: (1) create a community engagement framework to recruit underserved and underrepresented high school students to STEM precollege programs, (2) develop a STEM Success Matrix that identifies student competencies acquired in precollege programs that prepare students for collegiate success in STEM, (3) credential precollege programs using the STEM Success Matrix, and (4) develop a student badging system for precollege program participants using the STEM Success Matrix. Four University of Pittsburgh STEM precollege programs will serve as the context for development and testing with support from a range of partners representing the broader Pittsburgh STEM ecosystem. Approximately 300 high school students are expected to participate in the pilot, across the four precollege programs. Data will be collected via participant surveys and interviews. Formative and summative evaluations will be conducted by an experienced, external evaluator. Shareable metrics, tools, and processes will be developed and disseminated using various platforms and mechanisms. If successful, this pilot could be transformative - changing admissions considerations by credentialing STEM precollege programs and increasing student interest and motivation in STEM through student badging. It would also transform the STEM ecosystem of underserved and underrepresented minority students by creating an important STEM pathway from precollege to undergraduate admissions and ultimately, STEM Careers. This pilot could serve as a baseline for a more expansive alliance with other urban education ecosystems or assisting others interested in establishing their own collaborative infrastructure and networked improvement community model to achieve similar results.